U.S.-Germany Cooperative Research: Ultraprecision Manufacturing of Self Assembled Micro Systems

9981696
Sharon

This award supports Andre Sharon, Thomas Bifano, two post-doctoral students, and six graduate students from Boston University in a collaboration with Fritz Klocke of the Fraunhofer Institute for Production Technology in Aachen, Germany. The collaboration will develop the manufacturing science for a new class of highly three-dimensional, precisely machined, and automatically assembled microsystems. The manufacturing approach will address the multi-scale (nanometer to millimeter) interface problem associated with micromachined devices, providing the means for production of a broad range of commercially important assembled microsystems. The project team offers unique qualifications for the multidisciplinary work to be done. The project requires closely coupled efforts in precision engineering, materials processing, microfabrication, metrology, deposition and coating, and surface micromachining.